I-Corps: Translation Potential of an Artificial Intelligence (AI) Assistant for Course Management and Coordination in Higher Education

This I-Corps project is based on the development of an Artificial Intelligence (AI) assistant for course coordination and management in higher education institutions. Currently, instructors and teaching assistants in large, project-intensive courses are required to manually coordinate across multiple sections, fragmented tooling, and inconsistent handling of extensions, regrades, and team issues. This technology provides a centralized dashboard for pending tasks, drafts responses for policy-bound requests, and automates reminders to prevent dropped tasks by integrating course policies, calendar data, student requests, and historical decisions. The platform may save time and improve efficiency for instructors, teaching assistants, and course administrators.

This I-Corps project utilizes experiential learning coupled with first-hand investigation of the industry ecosystem to assess the translation potential of an Artificial Intelligence (AI)-powered instructional management assistant for coordination-intensive courses in higher education. It serves as a centralized coordination system that addresses the deeper workflow challenges instructors and teaching assistants face in multi-section, project-heavy courses. The technology focuses on exception and milestone tracking — automatically monitoring extensions, regrades, team issues, and deliverable deadlines that are currently handled manually through scattered emails, Learning Management System (LMS) messages, spreadsheets, and memory. It drafts replies to repetitive student questions, ensures consistent policy messaging across sections and teaching assistants, and surfaces dropped or delayed requests before they fall through the cracks. A core design principle is human-in-the-loop oversight: the AI assists rather than replaces, generating draft responses and tracking actions while keeping instructors in control, which addresses trust and accuracy concerns. This technology may provide a 20–30% reduction in coordination time, 3–5 saved teaching assistant hours per week, and prevention of dropped extensions or regrades.